Variations and Controls on the Up- and Down-Dip Limits of the Central America Seismogenic Zone

EAR-0229876
Susan Y. Schwartz

A first-order characterization of the seismogenic zone, including its geometry
and up and down-dip limits is nearly established in northern and central Costa
Rica. This was accomplished through the deployment of two onshore/offshore
seismic networks directly above the seismogenic zone that were part of a
MARGIN's funded multidisciplinary seismogenic zone experiment (CRSEIZE). This
proposal seeks to: 1) use data collected during this experiment in conjunction
with local network data to establish a similar first-order characterization of
the seismogenic zone in Nicaragua; 2) perform a detailed investigation of the
variations in the transition from inter to intra plate seismicity in northern
Costa Rica and Nicaragua; and 3) evaluate thermal and mechanical models that
have been proposed to control this transition. These golas will be accomplished
by simultaneously inverting local travel time data in northern Costa Rica and
Nicaragua to obtain an high resolution, three-dimensional, P and S wave velocity
structure and accurate hypocentral locations. Earthquake locations coupled with
focal mechanism determinations will allow the active seimogenic zone to be
identified in southern Nicaragua, where the addition of stations from the
northern Costa Rica (Nicoya) network greatly improves station coverage and
hypocentral accuracy.